Mathematical Sciences: Representations of Finite Groups

This project is concerned with the relations between the ordinary and modular representation theory of finite classical groups, and in particular, the relations between the Deligne- Lusztig theory and the Brauer theory, when the characteristic for the modular theory is unequal to the underlying characteristic of the groups. A number of questions on the modular representation theory of these groups is suggested by the recent classification of the l-blocks of these groups. This research is in the general area of the representation theory of finite classical groups. One of the main applications of group theory to other mathematical and scientific fields is in representation theory, and finite classical groups are a primary source of finite simple groups.